Individual Adjustments to Technological Change: A Plan for a Long-Term Program of Research

Managers must know how to help individuals make technological transitions without detriment to productivity and well-being. The purpose of this Research Planning Grant is to support the investigator in completing preliminary activities necessary to develop a long-term program of research on the process of technological change and the worker/task interface. During the project development phase, survey instruments will be refined and possible research sites will be evaluated.